WebTP: A User-Centered Web Transfer Protocol

The World Wide Web is now a critical communication infrastructure for
society. However, the foundations on which the Web is built are largely ad
hoc and haphazard, with a protocol framework consisting of the hypertext
transport protocol (HTTP) layered on top of the Internet's universal
reliable delivery protocol-the transmission control protocol (TCP).
Consequently, the performance of HTTP over TCP suffers from a number of
deficiencies that are all rooted in the fact that TCP's byte-stream
semantics are often at odds with user goals and the performance
capabilities of end clients and servers.

Several ad hoc remedies have been proposed earlier to compensate for these
deficiencies, e.g. parallel connections, persistent connections, and ACK
pacing. However, all these solutions are overly constrained by the
presumption of backward compatibility. We believe that the time has come to
adopt a holistic and integrated approach embodied in a new transport
protocol tailored specifically for the Web. Herein, we propose a set of
research tasks to study, design, implement, test and evaluate our new ``Web
Transport Protocol" or WebTP.

Our approach is based on a conceptual model of user validation, application
semantics, network and client states, and a flexible protocol that reflects
this syntax and semantics. The conceptual model emphasizes the interaction
between document structure, network state, and user preferences. Our
research prototype will leverage the well-established and highly successful
congestion control framework of TCP and vastly improve upon the existingWeb
protocols by bringing user requirements into the design loop. To do so, we
will apply the principles of Application Level Framing (ALF) to the design
of WebTP. ALF says that to optimize communication paths within the
application and across the network, an application's semantics (i.e. its
user requirements) should be explicitly reflected in the design of its
network protocol. Although ALF has been adopted in modern protocols like
the Real-time transport protocol (RTP), paradoxically it has not been
systematically applied to previously existing applications like the Web.

We will study the following questions:

* How do we best structure the ALF-based Web protocol in terms of
congestion control algorithms, loss recovery schemes, packet framing
methodology, header formats, toolkit APIs, and so forth? How do these
design decisions impact network performance, user satisfaction, protocol
complexity, and server load?

* How then does the client elicit user preferences in the least obtrusive
fashion?

* How does the receiver (client) learn of the content structure of a
server's Web data and combine that structure with its estimate of network
state and user preferences to control selective transmission via WebTP?

* How should functionality and state information be distributed among the
source (server or proxy), client, and user and what are the design and
performance tradeoffs? How does WebTP scale with increased speed and faster
clients?

Our approach to these questions draws upon network engineering and
communication theory, signal processing and stochastic control. We will
use existing network emulation infrastructure from the the INDEX Project to
comprehensively test and evaluate WebTP. This project holds the potential
to dramatically impact the way we think about Web transport and will
further contribute a design methodology, an actual protocol architecture,
and performance analysis and results. We believe that our versions of WebTP
will demonstrate dramatic improvements and pave the way for further
developments.